Mathematical Sciences: Stochastic Compartmental Systems

This project will continue the analysis of the compartmental models. The fundamental assumption in compartmental models is that the system is divided in to distinct coponents with outside input as well as feedback from the system itself. Most of the work so far has assumed deterministic processes governing the particles. Such models are used in pharmacokinetics, biological systems and in manpower planning systems. The research will study linear semi markov compartmental systems. Using marginal maximum likelihood, estimators of the parameters of the system will be found. The methods will be extended to copmartmental volumes.